Climate Change Narrative Game Education (CHANGE)

This exploratory project helps high school students learn complex Global Climate Change (GCC) science by making it personally relevant and understandable. CHANGE creates a prototype curriculum, and integrates it into elective Marine Sciences high school courses. Research will examine the project's impact on student learning of climate science, student attitude toward science, and teacher instruction of climate science. The goal of this project is to develop a place-based futuristic gaming simulation model that can easily extend to the other locales in other states, based on local climate change effects, local stakeholders, local economic and social effects to motivate the high school students in that area. CHANGE uses: (a) scientifically realistic text narratives about future Florida residents (text stories with local Florida characters, many years in the future based on GCC), (b) local, place-based approach grounded in west-central Florida Gulf Coast using scientific data, (c) a focus on the built environment, (d) simulations & games based on scientific data to help students learn principles of GCC so students can experience and try to cope with the potential long term effect of GCC via role-play and science-based simulation, and (e) a web-based eBook narrative where sections of narrative text alternate with simulations/computer games. The proposed project will work with 25 high school Marine Science teachers in 25 schools in Hillsborough County, Florida. The project delivers new research for instructional technologists and serious game developers regarding effective interface and usability design of intermedia narrative gaming-simulations for education.

This project employs and researches innovative models for delivering high school GCC education. GCC is a complex topic involving numerous factors and uncertainties making teaching this extremely important topic very difficult. The pioneering techniques proposed for this project will advance science education of GCC. It also will deliver new research for instructional technologists and serious game developers regarding effective interface and usability design of intermedia narrative gaming-simulations for education. Effective education is probably the most crucial part in our ability to cope with climate change. CHANGE will educate underserved low SES and minority high school students in Hillsborough County, and later elsewhere, with a model making GCC personally relevant to them.